Multidimensional Exploration of Linguistic Databases

This project aims to foster a new mode of fundamental research in
linguistics, namely 'web-based exploration of linguistic field
data.'' The objectives are to develop tools for manipulating
linguistic databases; to store and disseminate large datasets using
the model; to exploit the tools and datasets in teaching and research;
and -- underlying all of the above -- to explore new methods for
representing and analyzing linguistic data. The consequence of this
research will be increased accessibility, accountability, and
stability of empirical linguistic research.

The project will provide wide-ranging support for empirical linguistic
research, through the combination of traditional field methods with
new technologies for exploring and visualizing complex databases. The
interlinked, heterogeneous, and multimodal aspects of the data will be
a key component, and the research will encompass data types including
lexicons, interlinear texts, field notes, paradigms, grammar sketches,
annotated recordings, annotated maps and photographs, folios, course
notes, and problem sets, as well as links between all of these. A set
of collaborators have granted access to their field data for the
purposes of this project, and have agreed to road-test the new tools
in their ongoing fieldwork. All of the primary data created by the
project will be published on the web site of the Linguistic Data
Consortium (LDC), for general public access, subject to the
appropriate permissions having been granted. All tools and
documentation produced by the project will be freely available to
others.